Testing of Distributed Software

Testing distributed programs is difficult because of the complexity of synchronizations and non-deterministic execution behavior. This research investigates three approaches to testing distributed programs: multiple, deterministic, and guided execution testing. Testing strategies for distributed programs written in Ada and Estelle will be implemented nd experimental studies undertaken to test protocols. Testing issues related to TTCN, a recently developed protocol test description language, will also be investigated.